FRG: Focused Research Collaborative Proposal: Differential Algebraic Inequalities and their Applications in Engineering

Focused Research Collaboration Proposal: Differential Algebraic
Inequalities and their Applications to Engineering

This focused research project proposes a comprehensive investigation
of Differential Algebraic Inequalities (DAIs) and Dynamic
Complementarity Problems (DCPs), with the goal of developing an
extensive theory, designing and analyzing efficient algorithms, and
applying the results to problems in engineering of practical
importance. The two problem classes of DAIs and DCPs represent a
significant extension of an ordinary differential equation (ODE) and a
differential algebraic equation (DAE). The proposed study necessitates
the use of state of the art mathematical programming methods in
conjunction with ODE and DAE methods to deal effectively with the
inequalities and complementarity conditions in a DAI/DCP. The latter
are novel features that are absent in ODEs or DAEs. Since the main
methods for solving DCPs and DAIs in realistic situations are
numerical, the research will emphasize the interactions among
formulation, computation, and mathematical issues such as convergence
and approximation including numerical approximation and sensitivity to
parametric perturbations.

DAIs and DCPs provide a powerful mathematical framework for the
comprehensive treatment of a host of important complex system
applications that have so far received only minimal attention from
applied and computational mathematicians. The project will open a new
chapter in applied mathematics in which classical differential
equation theory is merged with contemporary mathematical programming
methods. The deliverables of the project will a set of broadly
applicable mathematical and computational tools that will have a
direct impact in several distinct engineering disciplines including:
constrained mechanical systems with frictional contact arising in
robotics and manufacturing, conditional modeling in chemical and
hydraulic processes, and hybrid systems with variable-structure
control encountered in avionics, intelligent highway systems, and
automotive systems.